Index to Plant Chromosome Numbers

The Index to Plant Chromosome Numbers is a compilation of all the original plant chromosome numbers reported in the scientific literature throughout the world, covering algae, fungi, bryophytes, ferns, and seed plants. Indexes are compiled annually but are usually published in volumes covering at least two years at a time. The chromosome number is an important attribute of a plant species, and the literature reporting these data provides important information for plant breeders, geneticists, and scientists who study the classification and evolution of plants. The Index to Plant Chromosome Numbers is the only worldwide index of this type and is thus the primary information source for chromosome data about plants for the world's scientific community. Indexes also function as a general bibliography for current studies in plant systematics. The scientific literature is reviewed voluntarily by the approximately 25 contributing editors for the project, who are spread throughout the world and are assigned responsibility for particular scientific publications. The data are forwarded to the editors Dr. Peter Goldblatt and Dr. Dale Johnson of the Missouri Botanical Garden, who coordinate the reviewing activities of the contributors and supervise the preparation of the published indexes. The chromosome information is sorted by computer alphabetically by plant family, genus, and species name, in which form it is published. All entries are cross-indexed to the original publication. Information from the Index will be available on-line via computer from Missouri Botanical Garden's TROPICOS system starting in 1989.